RIA: Tolerant Processor Arrays

A processor array is a collection of many similar processors, which can be executed in both parallel and pipline processing. Very often, spare processors and switching lattices are incorporated in the array to improve the (fabrication-time) yield and the (run-time) reliability. For these schemes, the complexity of the switching lattice can be characterized by using a parameter, the track-number. Previously, the investigator has explored there configurability of one-and-half-track arrays whose lattices are of minimal complexity. The research project involves three areas: (1) Finding switching lattices which maximize yield/reliability subject to area constraints (instead of lattices with minimal complexity). (2) Developing switching lattices suitable for enhanced-mesh arrays. (3) Developing real-time fault tolerance schemes for synchronous arrays. The difficulty comes from the need to resolve multiple faults in a real time environment. A distributed design for asynchronous arrays probably may be modified and used in synchronous arrays.